A Quantum Tunneling Laboratory Module: Scanning Tunneling Microscope and SQUID

Fairfield University will purchase new equipment to support a laboratory module centered on quantum effects in tunnel diodes, Josephson junctions, Superconducting Quantum Interferences Devices (SQUIDs), and the Scanning Tunneling Microscope (STM). The general plan is to introduce electron and super-pair tunneling phenomena as a unified laboratory experience. These phenomena are increasingly important as a branch of modern physics, and have a strong influence in basic physics research, in state-of-the-art research instrumentation and in numerous areas of high technology. Student capabilities will be developed such areas of science and technology as bio-magnetic phenomena, surface physics and materials science. The incorporation of the module into an existing two- semester Advanced Experimental Laboratory at Fairfield University will allow the curriculum to keep pace additional skills in the utilization of advanced laboratory instrumentation. As an additional benefit, upper division students will be able to utilize the new equipment for their required senior research projects, when appropriate to do so. Finally, the experience gained by the students in this area of tunneling phenomena and in utilizing the proposed equipment, will have an impact on collaborative efforts between, the Physics Department and area high technology organizations. The University will match the award with an equal amount of funds.